"2010"- Mississippi State University Biofuels Conference: Fueling America and the World with the Next Generation of Biofuels / Jacksonville, Mississippi (August 12-13, 2010)

This award is in partial support of the "2010 Mississippi State University Biofuels Conference: Fueling America and the World with the Next Generation of Biofuels," which be held in Jackson, Mississippi August 12-13, 2010. National and international experts from industry and academia will describe progress on science and engineering fundamentals, and the challenges with scale-up, regulatory compliance, and distribution for biofuels derived from lignocellulosic feedstocks and wastewater. There is to be significant participation by universities, national laboratories, and companies, and there will be a student poster contest. NSF funding will be used primarily to defray the cost of travel for invited speakers, mostly from universities. The conference will aid in the dissemination of the latest biofuels research in the areas of catalysis, feedstock preparation, and resource utilization. It is also intended to foster collaborations among researchers in industry and academia, resulting in the further advancement of biofuel technology.